Geometry Festival

THE GEOMETRY FESTIVAL
DMS-0072580

The annual Geometry Festival has been held since 1985 at the University of Pennsylvania, the University of Maryland, the University of North Carolina, the State University of New York at Stony Brook, Duke University and New York University's Courant Institute of Mathematical Sciences. This three day conference focuses on the major recent results in geometry and related fields. There are typically seven invited one-hour talks, no parallel sessions, and ample opportunity
and space for groups to get together for discussion. The award provides partial support for graduate students, post-doctoral
researchers, invited speakers and persons from under-represented groups to attend the conference. Facilities at the Geometry Festival are
handicapped-accessible. In several recent Geometry Festivals, there have been special activities for women mathematicians.

The Geometry Festival was held April 2-5, 1998 at the State University of New York at Stony Brook, April 16-18, 1999 at the University of Pennsylvania, and will be held April 14-16, 2000 at the University of Maryland. Future sites are decided approximately one year in advance.
Further information is available at the Geometry Festival websites for last year's conference, <http://www.math.upenn.edu/geometryfestival.html>, and at the
site for the upcoming conference, <http://www.math.umd.edu/research/geomfest> .
Each Geometry Festival website contains a link to the website for the next Festival, as soon as this is known.